FRG: Collaborative Research: Approximation of Lyapunov Exponents

This Focused Research Group project includes investigators
from three different universities: Luca Dieci at Georgia
Institute of Technology, Michal Jolly at Indiana University, and
Erik Van Vleck at the University of Kansas. The project
considers the approximation of Lyapunov exponents and other
spectral information for dynamical systems. The main goal is to
study and implement numerical techniques to approximate Lyapunov
exponents of continuous dynamical systems, as defined by a system
of time dependent differential equations. The investigators are
implementing and comparing so-called continuous and discrete QR
and SVD approaches. They distinguish between linear and nonlinear
problems, the chief difference being that in the linear case no
approximation of solution trajectory is attempted. The
investigators study Lyapunov exponents for systems of large
dimension, such as spatially discretized time dependent PDEs. In
particular, they consider PDEs for which an inertial manifold is
known to exist, and study the relative merits of techniques that
compute the exponents after a prior inertial manifold reduction
versus those that work with the full (spatially discretized) PDE.
Methods that use the Jacobian and Jacobian-free methods are
compared. The investigators also develop general purpose
algorithms and software for approximation of Lyapunov exponents
and aim to include the algorithms within standard software for
differential equations.
In many areas of science and engineering, physical and
biological systems are modeled with differential equations. In a
nutshell, a differential equation is a rule specifying how a
given initial state of the system evolves into future states. In
practice, we are given the differential equation and the initial
state, and need to find the solution (i.e., the evolution of the
initial condition). Realistic models depend on parameters and
the solution of the differential equation will of course depend
on the values of the parameters as well. The ultimate goal of
this project is to provide scientists with quantitive means of
assessing the dependency of solutions with respect to variations
of the initial state or the parameters in the problem. Lyapunov
exponents, and other related "spectral quantities," do exactly
this. A chief effort of the investigators is the development of
algorithms and computational software for approximation of
Lyapunov exponents and other spectra.